Dissertation Research:Exchange and Production in the U. S. Southwest

Under the direction of Dr. Charles Adams, MS Laurie Webster will collect data for her doctoral dissertation. She will utilize archaeological and ethnographic materials as well as historical accounts to reconstruct the prehistoric and early historic Pueblo Indian system of textile production and exchange. She will visit a number of museums which house specimens and study the methods by which they were manufactured. Because of the dry Southwestern U.S. environment many textiles preserve well in archaeological contexts and therefore it is possible to gain information on prehistoric textile use. Extensive ethnographic collections also exist and therefore one can trace changes into historic times. Textiles played a very important role in Pueblo society. In addition to their utilitarian function they were widely used for religious and other symbolic purposes. They played a major economic role and social role. When the Spanish conquered the Pueblo peoples they reorganized textile production and in some areas established an industry. Textile manufacture was also affected in more indirect ways with the introduction of new materials, such as sheep wool, dyes and weaving implements. Ms. Webster's goal is to trace changes from the pre-Spanish through Spanish period. The ultimate purpose is not to understand textiles as textiles, but rather to use them to gain insight into the Pueblo economic and social systems and to learn how this indigenous group adapted to culture change. This research is important for several reasons. It will increase our understanding of the relationship between material culture and social/economic organization. It will shed new light on the American past and assist in the training of a promising young scientist.